International Union of Pure and Applied Physics Triennial Conference on Thermodynamics and Statistical Mechanics (STATPHYS-19), Xiamen, China, July 31 - August 4, 1995

9521024 Stanley This grant provides travel funds to young investigators participating in the Nineteenth International Union of Pure and Applied Physics Conference on Thermodynamics and Statistical Mechanics to be held in Xiamen, China, July 31 August 4, 1995. This is a broad conference which affects many scientific disciplines. As such, the funding for these travel grants is provided by the Divisions of Materials Research, Mathematical Sciences and Physics. %%% This grant provides travel funds to young investigators participating in the Nineteenth International Union of Pure and Applied Physics Conference on Thermodynamics and Statistical Mechanics to be held in Xiamen, China, July 31 - August 4, 1995. This is a broad conference which affects many scientific disciplines. As such, the funding for these travel grants is provided by the Divisions of Materials Research, Mathematical Sciences and Physics. ***